Full-Scale Testing and Modeling of Seismic Response of Unreinforced Masonry Infill Panels

This project is supported under the Phase 2 (second year) program of the Seismic Repair and Rehabilitation Initiative (NSF 90-23). This research activity will use the data generated from demolition tests of several buildings in downtown Los Angeles under NSF Grant No. BCS